Groups with One Defining Relation

The principal investigator proposes here to study groups defined by a single relation.
Such groups arise as fundamental groups in algebraic topology, as discrete
groups of transformations in analysis and geometry and in abstract group
theory. The importance of such a study is in its many connections to other
branches of mathematics, as well as to computer science and logic. Progress will shed
light on a number of other subjects. These include the theories of hyperbolic
and automatic groups, computability, genetic and other algorithms and
may lead to a deeper understanding of finitely presented groups as a
whole. This proposal represents a first step in an overall study of one-relator
groups, using the number of steps in a so-called Magnus breakdown, as the
basis for induction. The principal investigator, together with his many colleagues,
will initiate this study by focussing attention on one-relator groups of planarity one.
These are the very special HNN extensions of a free group that arise in the first step of the
Magnus breakdown referred to above.

Groups are mathematical structures which are designed, in part, to capture the
intrinsic nature of symmetry. Consequently groups play an extremely important role
in geometry, in chrystallography, in particle physics, in chemistry and in cryptography
as well as in much of mathematics. Their uses in cryptography are yet to be exploited;
RSA encryption may be viewed as a first step in this direction. Many of the problems of
the physical world can be translated into problems in group theory. On the other hand, many
processes, such as evolution, can be used to unravel the nature of particular groups. Thus
group theory provides a testing ground for a better understanding of these processes.
The principal investigator, in the work to be undertaken, will, in particular, use group theory
to attempt to improve on one of the most exciting new aspects of computer
science, so-called genetic algorithms. Such algorithms appear to be a means for designing ever
more intelligent computers.